Exploring the rapid variability of pulsating white dwarfs and cataclysmic variables

A high speed camera for photometry of variable objects on the Apache Point Observatory
3.5-m telescope will be constructed and used to undertake several projects related to the
pulsation of white dwarf stars. These include: 1) Observations of pulsating massive white
dwarfs discovered through the Sloan Digital Sky Survey which will be used (via
asteroseismology) to determine whether these stars have crystallized and to what extent.
Crystallization plays an important role in determining white dwarf cooling times (which
in turn help date the age of the Galaxy and its components) and is also a likely but poorly
understood component of the crusts of neutron stars and pulsars. 2) The Sloan Digital
Sky Survey has also identified over 150 new cataclysmic variables, some of which
contain a pulsating white dwarf. Planned observations of these stars will allow the study
of pulsations across a variety of conditions (including accretion and possibly even during
outburst) which will in turn be used to probe the interiors of white dwarfs with different
evolutionary histories. 3) Ultrashort period (less than 1hour) cataclysmic variables called
AM CVn binaries will be searched for among candidates discovered by Sloan. The one
known eclipsing AM CVn will be monitored over a long term to measure radii and to
search for orbital changes that may be attributed to gravitational radiation.
In carrying out this project, a graduate student will be trained in the construction of
astronomical instruments and in the science of pulsating white dwarfs. The instrument
built here will also be useful for studying astronomical events which occur on short
timescales (e.g., flares among magnetically active stars, searching for variability in
gamma ray bursts, measuring exo-planetary transits, etc.) and will be made available to
all observers using the Apache Point 3.5-meter telescope.